NSF Travel Grant Support for IEEE Computer Software and Applications Conference (COMPSAC) 2009

The IEEE COMPSAC2009 will be held in Seattle, Washington from July 20 to July 24, 2009.
This preeminent technical conference is the primary venue for presenting new research
results in the computer systems and software: theory and applications along with a number
of workshops with topics such as Security, Trust, Privacy for software; Barriers towards
Internet-Driven Information Services, Software Cybernetics, Open Complex
System - Metasynthesis of Computing Paradigms, and is widely attended by researchers and
practitioners in the field. Attending conferences such as COMPSAC is of paramount
importance for the research and career development of graduate students. Participants
have the opportunity to present their work, attend panel and keynote talk sessions, and
interact with many others performing leading-edge research in the field.

This proposal requests funding to support approximately 12 graduate students in the United
States to attend this premiere conference. The travel awards will target graduate students,
in particular, women and under-represented minority students, since attending conferences
is an important part of their educational experience, and they often have limited travel
funds.